LSAMP Phase I: The Upstate Alliance

The Upstate New York region, which spans from the Hudson River Valley to Lake Ontario on the North coast of New York provides an array of institutions of higher education ranging from community colleges to distinguished research institutions, and pioneering industrial and technological innovations.

The alliance consists of Clarkson University, Cornell University, Monroe Community College, SUNY Onondaga Community College, Rensselaer Polytechnic Institute, Rochester Institute of Technology, and Syracuse University. These institutions - public and private, large and small, undergraduate, comprehensive and doctoral, together determined to impact the region in the near-term by increasing substantially the number of underrepresented students who complete degrees in science, technology, engineering and mathematics (STEM) disciplines and, in the long-term, increase the numbers who move into related careers, including graduate school on the way to a professional or research appointment.